Quantum Cyclotron Tests of the Standard Model and Beyond using Electron and Positron Magnetic Moments

To make progress, a technological society requires the new methods, technologies, and devices that are invented to promote the progress of precise, fundamental physics science – one of the central missions of the NSF. The laser, the atomic clocks that make GPS positioning possible, and nuclear magnetic resonance that makes possible magnetic resonance imaging (MRI) are all important examples that revolutionized our society in unexpected ways. Another example is the shelf-shielded superconducting solenoid, invented and patented in this research program. It is now incorporated in most MRI imaging systems to allow them to be located in changing magnetic fields (e.g. from nearby elevators). PhD students that carry out this research are well-prepared for the quantum information science workforce, the development of which is a national priority, insofar as they learn the cryogenic and quantum techniques that are typically employed. The quantum methods that they learn using one-electron and one-positron qubits are critical to both their PhD success and their preparation for this workforce. The new methods and devices that they develop contribute to the forward progress of quantum information science that is also a national priority.

The scientific goal of this research is to make the most precise tests of the fundamental mathematical description of physical reality that is called the Standard Model (SM) of particle physics by testing its most precise predictions. Each electron and positron acts like a very small magnet, and the SM predicts the size of this magnet more precisely than any other quantity. The SM also predicts that the electron and positron are “exactly opposite” magnets – that have exactly the same strength but opposite directions. A variety of quantum methods will be employed and developed to make the most precise measurements ever made of properties of elementary particles. One electron or positron at a time will be suspended for months at a time within the magnetic field of a device called a Penning trap for measurements whose precision will approach a remarkable 1 part in 10^14. To lower precisions, the SM has correctly predicted the size of the electron and positron magnetics. How it does so is a great mystery, given that the SM is not consistent with basic features of a universe that emerged from a big bang. This is a compelling indication that something is missing and hence wrong with the fundamental SM description of physical reality. Figuring out what is missing and must be corrected will most likely lead to a substantial paradigm shift in our mathematic description of fundamental physics and our universe. The paradigm shift last century that physical reality had to be described quantum mechanically has led to quantum information science that is a current national priority. It is reasonable to expect that a new paradigm shift that resolves the great mystery of the SM could lead to similar unexpected but important new methods and devices for our technological society.